STTR Phase I: A customized upper extremity telerehabilitation solution with remote therapist interaction and dynamic motor recovery feedback for individuals post stroke

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project is to improve the quality of life for individuals suffering arm and hand impairments from stroke, through a medical device for in-home telerehabilitation that is easy to use, engaging, and affordable. Every year, ~800,000 people have a stroke in the United States, and about 65% suffer long-term upper extremity impairments. Sustained and extensive therapy is often needed to improve and regain the functions of the hand. Many individuals post-stroke have difficulty accessing rehabilitation due to transportation, health and mobility issues. This device can potentially reduce long-term disability in the United States and alleviate the financial burden on both individuals and society. By integrating the product into physicians’ and therapists’ workflow, it expands the patient pool that can access rehabilitation, making it more time- and labor-efficient. It will contribute to the field of telehealth and promote decentralized health care.

This Small Business Technology Transfer Research (STTR) Phase I project will develop a telerehabilitation system that promotes neuroplasticity for hand and arm motor recovery, to be used in the homes of individuals with neurological disorders. The objective of this proposal is to create a beta prototype that provides personalized intense hand and arm rehabilitation via engaging motion based games. The proposed project includes: 1. enhancing the adaptive algorithms to dynamically adjust the games to an individual’s needs; 2. developing a Rehabilitation Assessment Protocol by optimizing the extensive motion tracking capabilities. This provides important information to clinicians for making rehabilitation plan adjustments, improving the interventions, and reaching goals faster; 3. developing a HIPAA compliant data platform for the recommendation system to facilitate encrypted data streaming and therapist-patient interaction in real-time or offline. This includes the development of a therapist portal that generates automated progress reports, allowing them to treat more patients efficiently; 4. conducting a usability study to evaluate the capabilities of the system from the perspective of the prescribing therapist. These capabilities of virtual rehabilitation, remote clinician supervision, and progress tracking offer a cost-effective way to improve patient outcomes as well as the fiscal viability and profitability for clinicians.